Intermediate Energy Physics at Dartmouth

A student will work on the control system for the polarized Helium-3
target for the BLAST experiment at MIT Bates Linear Accelerator
Center. This target will be used in 2004 for an experiment to
measure the charge distribution inside of a
neutron. A student will work with computers and the EPICS control
system (used in many accelerator laboratories) to control lasers,
power monitors and other components of this complex target. A
student will also be able to participate in large, active and
ongoing experiment which measures some of the basic properties of
nature at the nuclear and sub-nuclear scales.

In this project a student will be bringing a major data acquisition
system (CODA) which is used at several major accelerator
laboratories, to the lab bench. By working in cooperation with the
data acquisition group at Jefferson Lab (Newport News, VA) and the
an electronics group at Indiana University we will work to join CODA
to the PCI-bus. The PCI-bus is the back bone of most Linux
computers, and
different then the hardware which traditionally drives data
acquisition systems.
This would allowing the testing of equipment on small systems to be
done the same way as on large laboratory based data acquisition
system.